Applied Mathematical Logic

Research will be conducted on automated reasoning, on mathematics, and on the use of automated reasoning (AR) techniques to solve mathematical problems. The "pure" mathematics topics include investigations into set theopy, topology, and measure theory. The properties of the standard (Lebesgue) measure on the real numbers are well understood, but various generalizations of Lebesgue measure lead to interesting open questions. The proposer plans further work on measure extension axioms, which involve extending Lebesgue measure to measure additional (non-measurable) sets of real numbers. He also plans to consider measures on other topological spaces. The "pure" AR topics include improving the technology for linked resolution and automatic lemma generation. In addition, a number of topics involve integrating AR and mathematics by using AR to derive mathematical theorems. In particular, it is proposed to continue work on algebraic systems such as quasigroups and loops; one specific project here is to find a structure theory for G-loops. It is also proposed to work on single axioms for groups. Besides these specific questions in algebra, it is planned to look at the general problem of transcribing machine-generated proofs into meaningful form. Work is also proposed on verification systems, which are designed to use a computer to check the correctness of existing mathematics. There are three distinct, but related, threads to this research. The first thread involves the expansion of our knowledge of traditional pure mathematics, without any specific practical application in mind. The other two involve automated peasoning (AR) tools. AR allows the computer to derive logical conclusions from given knowledge. This subject has been in existence since the 1960s, but it is only in recent years that the tools have become powerful enough to discover conclusions which could not have been discovered without human assistance. The second thread involves a continuation of the proposer's work in impr oving the AR tools and using these tools to create new results in mathematics. This is of interest not only for the mathematics itself, but because it demonstrates the power of the tools, which can then be applied to reasoning tasks in other areas of science and engineering, as well as to autonomous decision making by robotic agents. The third thread involves verification systems; these systems do not discover new mathematics, but rather are used as an automated database to collect and verify existing mathematics. One potential application to advanced mathematics is the use of the computer as a referee to validate new mathematical results. On the more elementary level, these tools can provide an accessible intelligent database of mathematical knowledge, which can be accessed by users of mathematics. The difference between this and traditional database methods in cataloging mathematics is that the computer has "understood" and verified the knowledge it has, so that the the knowledge may be accessed by idea or concept, rather than by keywords.